CAREER: Stability and Polarization Control of Single Mode Vertical-Cavity Surface-Emitting Lasers Exposed to Optical Feedback

The proposed integrated research and education program focusses on
investigation of the notorious polarization instability and sensitivity
to optical feedback of single transverse mode vertical cavity surface
emitting lasers (VCSELs). These intertwined difficulties plague ongoing
efforts to develop the use of single mode VCSELs for applications such
as wavelength division multiplexed communications networks and optical
disk readout. Furthermore, we expect that our work will be relevant to
future investigations of other low-dimensional semiconductor nano-lasers
with a large degree of symmetry. The experimental investigations of
polarization stability will be analyzed using a novel model that we have
developed to describe VCSELs with two polarization eigenstates in the
presence of optical feedback. This CW work will then be extended to an
investigation of the small-signal modulation response of VCSELs with
optical feedback. Finally, the results of these investigations will be
used to explore practical strategies for improving the stability and
polarization control of single mode VCSELs exposed to optical feedback.

The proposed research will be integrated into the education of our
undergraduate physics and engineering majors, both in the classroom and
via direct participation of undergraduates in my research program. In
order to enable our students to acquire the necessary research skills,
we are developing a new investigative, inquiry-driven, sophomore-level
instructional optoelectronics lab. In addition, we are introducing into
our introductory sequence pedagogical reforms aimed at encouraging
students to engage in the processes of critical analysis that are
essential to successful, creative research. Ultimately, this
integration of research and teaching will contribute to the resolution
of a critical problem in VCSEL development while preparing our
undergraduates to join the ranks of the next generation of women
scientists and engineers.